Transport of Hydrocarbon Contaminants in Ice and Ice/Soil Systems

The proposed award is for the support of work over a three-year period. There has been little interest in the fate of hydro- carbon contaminants in cold regions. There has been limited research on water movement in such frozen soils as permafrost. Research on contaminant transport under freezing conditions has increased as interest in human activity in polar regions has increased. The work has three components: 1) bench-scale studies of mechanisms affecting transport processes in ice and soil/ice systems; 2) field studies of two locations (one arctic, the other antarctic) known to have experienced hydrocarbon contamination; and 3) development of a computer model to allow analysis and prediction of hydrocarbons in ice and ice/soil systems. Spatial and temporal variation in soil matrices are important aspects of soil contaminant investigations. Data collected in the physical bench-scale studies will serve as the underlying support for equation development and documentation of the exclusion phenomenon. Also, they will provide specific information on the effects of percent clay and silt, and on exclusion coefficients for the three components of the contaminant mixture (i.e., benzene,toluene and xylene). Field study data will serve to calibrate and validate a transport model. The research will extend current work being done by the Principal Investigators on modelling of hydrocarbon-groundwater interactions under freezing conditions.